NSF Industry/University Cooperative Research Center: Center for Corrosion in Multiphase Systems

Corrosion conditions affect a wide range of industries. In oil industry, the main cause of pipeline fractures is corrosion. Generally speaking, it is not economic to separate the oil and gas and transport them in different pipelines. In the oil industry, the oil and gas, together with carbon dioxide and brine which are used in enhanced oil recovery methods, are flowed together in one large diameter pipeline. These multiphase flows have very different characteristics than single phase flows. Planning activities at Ohio University and the University of Illinois have developed an industry based research Center program in investigating the corrosion in multiphase systems. The formation of this Center is based on the early work supported by some oil/gas and animal farm building industries . The proposed Center program is to develop an integration of industry, Ohio University, and the University of Illinois based on the NSF I/UCRC model. The initial research agenda of Ohio University/University of Illinois's Industry/University Cooperative Research Center for Corrosion in Multiphase System will address the following topics: 1) Corrosion in Oil and Gas Pipelines, 2) Corrosion in Animal and Plant Confinement Facilities, and 3) Bacterial/Microbial Corrosion. Currently, there are fifteen company sponsors for the Center (ten companies in the research group at Ohio University and five companies in the research group at the University of Illinois) committing approximately $365,000/year. The Principal Investigator/Center Director and his colleagues at Ohio University and the University of Illinois have the knowledge and facilities to run this Center. The Program Manager recommends Ohio University and the University of Illinois be awarded $100,000 for the first year of a five-year continuing award. The continueing award for the University of Illinois will be based on the significant growth of the industrial support in the end of the first year. Near the end of the first year the Program Director will review the progress of the Center on a number of criteria, including the following: 1) the extent to which the university- industry interaction is developing; 2) the extent to which the support base is developing; 3) the extent to which a robust research program is developing. If the review is satisfactory, the Program Director will recommend support for the next period of this continuing award.